Conference: Structure and Polarization in the Interstellar Medium: A Conference in Honor of John Dickey

This award will support the conference “Structure and Polarization in the Interstellar Medium: A Conference in Honor of John Dickey.” This conference will be held on 18–21 February 2025. This conference will be run simultaneously at two sites – Stanford University and the Australian National University. This conference will bring together global experts to discuss the structure of the Milky Way, the interstellar medium (ISM), polarization, and Galactic magnetism. This award supports the participation of graduate students and postdoctoral fellows in this conference. This meeting will provide an opportunity for early career researchers to establish collaborations with experts in the field.

Topics will include recent and ongoing work on the structure, magnetism, polarization, and chemistry of the Milky Way and nearby galaxies using radio observations of the interstellar medium. The conference will stimulate collaborative work in two creative ways. Simultaneous work sessions at each site will actively promote real-time collaboration and discovery. Cross-site collaborative work sessions (one hour per day) will synthesize ideas and share breakthroughs achieved during the independent collaborative work sessions at each site.